Prehistory Gallery: Planning for Science Education Components

9630517 Vivian The Arizona State Museum (ASM) will use this planning grant to further their planning for the educational content of their new prehistoric gallery. This project is titled "Prehistoric Gallery: Planning for Science Education Components". The subject of the planning activity is part of their master plan for facility renovation and interpretation. Two approx. 10,000 square foot exhibit halls are being developed; the first is the recently opened Paths of Life: American Indians of the Southwest. The second, and the subject of this planning project, is Journeys of the Ancestors: Ancient Peoples of the Southwest. The planning activities will consist of 1) travel by the ASM planning committee to seven museums to discuss exhibit philosophy, interpretive strategies, and exhibit techniques; 2) an interpretive design seminar that will bring together a multidisciplinary team of scientists, science educators, exhibit designers, and others to share ideas on the design, content, and educational activities for this new hall; 3) additional a front-end evaluation to test effectiveness of the themes, strategies, and learning activities with different segments of their potential audience; 4) a planning session with area teachers to examine the relationship between the exhibit and the curricular needs.